REU Site: Space Science and Instrumentation at the University of Alabama in Huntsville

This is a renewal of an REU site program. It will provide summer research opportunities to undergraduates to work on problems in space physics and instrumentation related to space physics experiments. Research topics cover a wide area of space physics and instrumentation. Topics in solar physics include: computer modeling of solar flares, studies of the corona using data collected during solar eclipses, and modeling of coronal mass ejections. Topics in Magnetospheric Physics include: computational simulations of plasma transport in the plasmasphere, simulations of turbulence in the plasma sphere, development of magnetometers for future small satellites, laboratory work using lasers to investigate the formation of plasma clouds from small objects of space debris. Topics in Astrophysics include: studies of X-ray binaries using data from EUVE, ROSAT and BeppoSAX. Topics in Optics and Materials Science include: computational ray tracing and testing of advanced mirrors and imaging systems and the Orbiting Wide-angle Light-collector project for studying the highest energy cosmic rays